SGER--A Synthesis of Projects Funded by the Division of Research, Evaluation, and Communication

This study will synthesize findings of the portfolio of research projects funded by the ROLE program. Research methods include the analysis of survey findings, document analysis, and interviews with appropriate elite informants. Dissemination plans include presentations at conferences (including the ROLE PI meeting) and scholarly publication.